Integral Equation Methods for Scattering by Inhomogeneous Media: Preconditioning, Efficiency, and High-Order Accuracy

The PI proposes to develop and rigorously analyze new efficient and
high-order accurate integral equation methods for acoustic scattering in
two and three dimensions, with the longer-range goal of developing methods
for full electromagnetic scattering (by inhomogeneous and even anisotropic
media) in three dimensions. These methods combine an existing FFT-based
method for integrating over smooth regions of the inhomogeneity, with an
accelerated, high-order accurate integration scheme, for small regions
near scatterer discontinuities. The PI also proposes to develop
preconditioning strategies through two distinct lines of investigation:
(1) preconditioning by means of a perturbation expansion about a simple,
piecewise-constant, radially layered inhomogeneity and (2) preconditioning
by means of the infinite frequency limit of the problem, i.e., geometrical
optics. To pursue a preconditioner based on geometrical optics, an
effective method for computing the multi-valued solution to the eikonal
equation in inhomogeneous media (capturing the reflection and refraction
at discontinuous interfaces) will be developed by building on a recently
developed phase-space-based level set method, which combines a spectral
representation in the phase variables with a discontinuous Galerkin
finite-element discretization in the spatial variables.

The use of numerical methods to evaluate the scattering of waves by
complex material structures plays an important role in an enormous range
of scientific and engineering technologies. Examples include radar and
remote sensing, medical and biological imaging (e.g., CT-scans,
ultrasound), laser-plasma interactions (e.g., in laser-driven fusion),
photonic crystal design, nondestructive testing, neutron and electron
diffraction, and exploration seismology. At the same time, the ever
increasing size and complexity of material structures of practical
interest place many problems beyond the capabilities of state-of-the-art
computational methods, thus requiring new and innovative mathematical
approaches. The PI proposes to develop new efficient and highly accurate
computational methods for such problems to enable the treatment of larger
and more complex scattering structures.